Presidential Young Investigator Award

The research will focus on two major areas of research: first, a preliminary investigation of the performance of transportation systems subject to earthquake ground motions; and second, the assessment of impacts of travel behavior on the physical environment using theoretical and operational models of complex travel behavior previously developed by the researcher.